Surface Modification of Bulk-Metallic Glasses by a Laser-Peening Process

The main objectives of the proposed research are to (i) identify the key processes and variables for laser peening of bulk-metallic glasses (BMGs); (ii) optimize laser-peening processes; (iii) characterize residual stresses, structures, and mechanical properties of the treated surfaces; (iv) establish relationships between the laser peening and macroscopic-mechanical properties of BMGs; (v) model the interactions between the laser-peening process and BMGs; and (vi) elucidate the mechanisms of the laser-peening modification on BMGs. The research Program will improve the understanding of the effects of laser peening on structures and properties of surface layers and bulk BMG samples.

The current research on the laser-peening processes of BMGs will enrich the research and teaching efforts in advanced materials. The presentations at professional conferences and the publications in academic journals will achieve the wide national and international impact. The education, human-resource development, and outreach activities will be the integral part of this Program. The graduate student in the Program will develop a comprehensive knowledge of advanced processing and materials, and learn how to plan and conduct scientific research. The results of the Project will be disseminated through avenues accessible to the scientific community and to the general public with an emphasis on middle- and high-school students and teachers, as well as women and minority students and teachers. The efforts will not only increase the public awareness of the advanced laser processing and bulk-metallic-glass materials, and their scientific importance, but also stimulate the interests of the students in pursuing science, engineering, and technology fields of study.